International Travel to Develop Increased Collaborations with Asian and European Engineering Schools

0090124
Jacoby

This is a proposal for a planning visit for Dr. Roxanne Jacoby to visit engineering schools in the Philippines, Thailand, China and Korea to develop collaborations between Cooper Union College and the engineering schools in these countries. Cooper Union is outstanding in its engineering education programs. This trip will provide a good opportunity for Dr. Jacoby to develop additional collaborations in engineering education with Asian schools.